Presidential Young Investigator Awards

This is a Presidential Young Investigator award is which the central project focus is voltage collapse in electric power systems. This phenomenon is usually a result of high reactive power demand in power systems, and it encompasses both steady state and dynamic behavior.